Research Experiences for Undergraduates in Chemistry at Baylor University

This Research Experiences for Undergraduates (REU) Site project is in the area of chemistry. During the summer of 1992, twelve undergraduate students will spend ten weeks engaged in research in the chemical sciences, under the direction of various members of the faculty in chemistry. The students will participate with Baylor students and students from several foreign exchanges in cross-cultural experiences in addition to weekly seminars, an end of summer undergraduate research symposium, especially designed classes in modern instrumentation, and glassblowing. Trips to nearby industries and research institutions will be organized.